REU Site: Software Safety: Methodology, Practice and Research

This funding renews a successful CISE Research Experiences for
Undergraduates (REU) site at the University of Texas at Dallas.
This site focuses on Software Engineering research related to
Software Safety. Students will evaluate the strengths and
weakness of existing methodologies and current practices for
safety assurance, as well as investigating issues such as how
the introduction of software safety requirements may affect
the software lifecycle and how software processes, methods
and tool support should be adjusted. In addition to research,
students will take field trips to industrial partners and attend
mentoring workshops on technical writing and oral presentation.

This REU site will allow students, especially those from
underrepresented groups or universities with limited research
opportunities, to experience cutting-edge research in software
safety --- critical to the prevention of catastrophic accidents
and safe operation of software-dependent systems. It will also
encourage these students to continue into graduate programs and
careers in science and technology research. Students will gain
proficiency in a broadly applicable skill set including oral
and written communication, research methods, critical thinking,
and problem solving.